U.S.-France Joint Workshop: Genome Analysis of the Plant Pathogen, Erwinia Chrysanthemi 3937

0129203
Perna

This award provides support to 8 US participants, including graduate students and junior faculty, in a US-France joint workshop on genome analysis of the plant pathogen, Erwinia Chrysanthemi 3937 in Lyon, France, July 2002. The workshop, organized by Nicole T. Perna of the University of Wisconsin and Nicole Cotte-Pattat of the Institut National des Sciences Appliquees de Lyon, France, brings together researchers in genomics and Erwinia biology. The goals are: to discuss strategies for completing the sequencing of E. chrystanthemi genome and methods of genome analysis; to develop standards for annotation (predict genes and their functions); to train on a web-based multi-user annotation system; and to forge collaborations for post-sequencing projects. This workshop affords an opportunity for the ultimate end-users of the Erwinia genome sequence data to create the annotation and a solid framework for future research partnerships.

This award represents the US side of joint proposals to the NSF and the French National Center for Scientific Research (CNRS). NSF will cover travel to France and living expenses of US researchers and graduate students. The CNRS will support the travel of the French researchers to the workshop.